CISE Research Instrumentation: Architectural Enhancement for Connection Machine Environment

Boston University intends to buy a Thinking Machines Corporation Connection Machine, Model CM-5 to enhance Boston University's massively parallel scientific computing environment. This award is for the purchase of a 20 Gigabyte CM-5 disk array unit. The equipment will be used to support research in molecular dynamics simulation of freezing, simulation of neural networks, quantum chemistry calculations, high energy physics particle tracking simulations, plasma simulations and chaos in N-body systems. Computationally-based research which requires high precision solutions of large systems of ordinary differential equations and /or large matrix systems, will be pursued on-site at Boston University in its enhanced massively parallel scientific computing environment. Its acquisition of a Thinking Machines' CM-5 Machine, and from this award, a 20 Gigabyte CM-5 disk array unit, will enable Boston University to support projects in molecular dynamics, neural networks, quantum chemistry, particle tracking and plasma simulation.